Support of the Federal Construction Council

The FCC is an element of the Building Research Board (BRB), Commission on Engineering and Technical Systems (CETS), National Research Council (NRC). The FCC has provided federal agencies having an interest in construction with a mechanism for jointly identifying and addressing mutual problems and concerns. The proposed FCC program for calendar year 1992 includes advisory studies, coordination activates, and hoc information studies, and base activities. The proposed program was developed by the FCC Program Committee with the assistance of FCC consulting committees and the BRB staff. Advisory Studies included: 1. Education of Facilities Design and Construction Professionals (Phase 1) 2. Demonstrating The Need for Infrastructure Rehabilitation Projects 3. Role of Federal Agencies in Fostering New Technologies and Innovation in Building (Phase 2)